Mathematical Sciences: Post Doctoral Program in Analysis andApplied Mathematics

This project supports postdoctoral visitors at the Courant Institute of Mathematical Sciences at New York University. The postdoctoral program will expose young scholars to the mix of analysis and applied mathematics research ongoing at the Courant Institute. The Courant Institute embraces a number of fields that are linked to mathematics with researchers working in physics, engineering, biology, and several other branches of science. An area of particular strength at the Courant Institute has long been the theory of partial differential equations studied both in itself and in connection with specific applications. Many of the postdoctoral visitors coming to the Courant Institute are interested in extending their knowledge in partial differential equation or in one of its many applications. The scientific excellence of the Courant Institute has been recognized in many ways. Seven of the faculty have been elected to membership in the United States Academy of Sciences, and several have been elected to the national academies of other countries. Many prizes and honors, such as the Birkoff Prize, the Crafoord Prize of the Royal Swedish Academy, the Wolf Prize, two MacArthur Foundation Prize Fellowships, and other prizes of professional societies and of the National Academy have been awarded in recent times to members of the faculty. This project provides support for four postdoctoral appointments of young investigators to study in mentorial relationship with senior faculty at the Courant Institute of Mathematical Sciences.